Electron and Proton Transfer Mechanism in the Succinate- Cytochrome C Oxidoreductase

Dr. Ohnishi is continuing to explore the relationship between the structure and function of the redox components in biological electron and proton transfer processes. Standard and advanced EPR techniques will be used in conjunction with state-of-the-art genetic engineering. These multidisciplinary studies are expected to enhanced the understanding of the molecular mechanism of the energy transduction in the Site II region of the respiratory chain. During the past few years a wealth of new information has been obtained from the study of mitochondria, photosynthetic bacteria and chloroplasts cytochrome bc type complexes leading to the consensus that all of these complexes function by some type of quinone cycle mechanism. However, the detailed molecular mechanism of proton and electron transfer is still not completely understood.***//